Some mesoscale issues for applied mathematics

Kinderlehrer
DMS-0806703

Mesoscale phenomena in physical and biological systems
assume prominence when an intermediate length or time scale is
required to assess gross system behavior or when the finer active
scales cannot be directly interrogated. These systems are
frequently metastable. Two broad areas for investigation have
been identified directly from potential application: texture
development dependent on interfacial properties of polycrystals
and diffusion mediated transport with application to ensembles of
molecular motors. A central materials science problem is to
engineer a microstructure to attain a desired set of
characteristics. The group of the investigator has discovered a
new characterization of material texture, the description of a
polycrystal in terms of its geometry and crystallography, called
the grain boundary character distribution, which is found to be
correlated to interfacial energy. A main objective of this
project is to explain this characterization employing large scale
simulation and analysis and stochastic analysis. Geometric
coarsening is also studied. The goal of the second part of the
project is to develop appropriate modeling and analytical methods
to understand how molecular motors function in various
circumstances, and in particular, to examine various
transformation pathways and transduction scenarios. This
involves mass transport theory among other new directions in
nonlinear analysis. Understanding the predictive character of
large scale simulations of metastable systems used to interrogate
and model physical and biological systems is an emerging
fundamental challenge for mathematical/computational science. It
is a coarse graining or upscaling question at the informational
level. The goal of this project is to address this challenge.

This project has two related parts. Most engineered
materials arise as polycrystalline microstructures, composed of a
myriad of small crystallites, called grains, separated by
interfaces, called grain boundaries. The energetics and
connectivity of this network of boundaries are implicated in many
properties across all scales of use, from nanoscale medicine and
electronics to aircraft structures. A new characterization of
material texture is now available, the grain boundary character
distribution, discovered very recently in the group of the
investigator. It is as if each material leaves a unique
footprint in the microscope. A project objective is to explain
this distribution by simulation and innovative mathematical
analysis in order to provide materials engineers with a
predictive tool. Eukaryotic intracellular traffic owes to a
network of molecular motors moving on cytoskeletal or actin
filaments. This is the second part. The ability to successfully
transduce chemical energy to motion owes to functional elements
and relations in the system. These are modeled and analyzed.
The opportunity to discover the interplay between chemistry and
mechanics and to elaborate the implications of metastability
could not offer a more exciting venue.